Synthesis and Mechanical Properties of Microlaminates Using Ion Beam Assisted Deposition

9411141 Was The objective of this work is to explore the use of ion beam assisted deposition (IBAD) to control the microstructure and interface properties of microlaminates. The results should provide a more fundamental understanding of factors controlling strength and toughness in these systems. Niobium/alumina is selected as the model, high temperature system to explore IBAD's effect on grain size, morphology, texture and ensuing strength of the ductile layer. It may be possible to control the metal-oxide interface strength by controlling the orientation relationship and the impurity composition at the interface. Although the depositions are done at high temperature (600 degrees C) and still higher temperature annealing is conducted to assess microstructural stability, the focus of the mechanical properties study is the toughness of the microlaminate at ambient temperature. %%% The scientific approach is based on the idea that ion beam assisted deposition provides improved control over the structure of individual lamellae and interfaces in microlaminates, thereby improving the toughness and strength of these materials for high temperature applications as structural and coating materials. ***